Engineering Research Equipment Grant: Video Digitizing and Display System

This is an equipment grant to provide a video digitization and display system that will allow video data to be sampled and stored in a computer memory and later played back after digital processing. This equipment will allow research in the Digital Signal Processing Laboratory at Georgia Institute of Technology to be extended to the processing of video imagery. The specific research projects that will use this equipment extensively include the following: iterative methods for blur removal from video imagery; applications of mathematical morphology in image analysis; digital coding of video signals; multiprocessor architectures for digital signal processing; low bit-rate video coding for deaf communication; and computer vision. Research conducted with this equipment could contribute to video communications, industrial robotics, and defense systems.